A Workshop to Develop an Arctic Circumpolar Vegetation Map

9301458 WALKER Vegetation is a key element in understanding and predicting how the Arctic region will respond to and contribute to global change. This award provides partial support for a workshop in St. Petersburg, Russia to begin development of an accurate vegetation map of the circumpolar arctic. The workshop is also being supported by the U.S. Fish and Wildlife Service. ****